Molecular Genetic Studies of Neurogenesis in Drosophila

The earliest stage of neural development relies on a decision making process that determines whether groups of uncommitted cells are directed into a neural pathway of development or a pathway that produces skin. This process is fundamental and shared by a wide range of organisms, including human. In the fruit fly, this decision is regulated by a group of genes called the neurogenic loci whose gene products mediate intercellular communication. Molecular studies of these loci have demonstrated that they encode membrane, cytoplasmic and nuclear proteins. The mastermind (mam) gene, is a member of the neurogenic loci that codes for a nuclear protein with a novel structure. It is the only member of these loci where sequence information has not provided a clear model for function. To understand the function of the mam gene, three strategies will be undertaken. First, the hypothesis that mam encodes a DNA binding regulatory protein will be tested. This will involve biochemical assays, and the use of a new yeast selection system that may elucidate the targets of mam regulation in the nucleus. Secondly, a screen for a temperature-sensitive mam allele will be made in order to inactivate the mam protein at any time during development and observe the consequences of mam elimination on neural development. Thirdly, genetic screens for modifiers of mam function will be performed. These screens may produce mutations in genes that interact with mam and also play a role in early neural development. It is expected that a complete characterization of the mam protein and interacting genes will provide new insights into neural development that are generally relevant to many species.